CAREER: Breaking the phonetic code: novel acoustic-lexical modeling techniques for robust automatic speech recognition

Spontaneous speech, accented speech, and speech in noise continue to

provide automatic speech recognition (ASR) technology with significant

challenges; error rates of ASR systems are still unacceptably high for

these types of speech. This project establishes a consistent

framework that seeks to cope with all of these conditions. The novel

approach to phonetic variability investigated here views the problem

as one of phonetic information underspecification: some subset of

information that the listener receives will be missing or uncertain.

Lexical access is thus a phonetic code-breaking problem --- how can a

system accumulate phonetic cues in each of these conditions to

recognize words on the basis of incomplete evidence?

The research program of this project takes a multidisciplinary

approach to integrating linguistic theory with speech recognition

technology; discriminative statistical models of linguistic features

are employed to model nonlinear, overlapping phonological effects

observed in speech. The framework allows derivation of new linguistic

insights through analysis of trained systems.

The educational program fosters interdisciplinary research (with

cross-disciplinary graduate seminars) and increases participation of

underrepresented students in Computer Science by introducing language

technology topics early into the undergraduate curriculum and

encouraging undergraduate research.

Apart from cultivating a new way of thinking about pronunciation

variation for ASR, the broader impacts of this research are to provide

collaborative resources for the ASR and linguistics communities to

discuss in tutorial and workshop settings. Addressing noise, accent,

and speaking style in a consistent framework will also improve ASR

technology for many who are underserved by current systems.